Fifteenth Annual Telecommunications Policy Research Conference (Computer and Information Science)

This project provides partial support for the Fifteenth Annual Telecommunications Policy Research Conference, held September 27-30, 1987 in Airlie, Virginia. The Conference brings together researchers of varied disciplines from the academy, research institutes, industry and public-interest organizations with government policy-makers in a setting conducive to open and fruitful exchange of information and ideas. The Conference is designed to facilitate the rational development of coherent telecommunications policy by presenting the results of the best available current research on a wide range of key telecommunications policy issues, by clarifying the policy research agenda, and by stimulating future policy-relevant research. Conference proceedings will be edited and published. The topics addressed at the Conference reflect the broad range of key policy issues that confront the nation in its transition to a services-based information economy. The dissemination of significant current research relevant to these issues is highly valuable to both the policy making and research communities.